Symposium on Teaching Polymers at All Levels: Kindergarten to Graduate School; American Chemical Society Meeting, New Orleans, Louisiana, August 22-26, 1999

9906372
Krause

This Symposium at the Fall 1999 Meeting of the American Chemical Society is
titled "Teaching Polymers at All Levels: Kindergarten to Graduate School".
It aims to bring together educators from different backgrounds to discuss
ways to enhance the teaching and appreciation of polymers. The topics of
the talks will cover the spectrum of approaches from curricular innovation
and development to distance learning, web-based approaches, informal
education, museum-centered activities, and student kits.